Formulas for Quiver Varieties and Quantum Schubert Calculus

The investigator will study topics in the broad area of enumerative
geometry. Quiver varieties form a general type of degeneracy locus,
which includes many important varieties such as determinantal
varieties and Schubert varieties. The investigator will attempt to
generalize known geometric and combinatorial formulas and
constructions concerning equioriented quiver varieties of type A to
work for more general quiver varieties of Dynkin type. He will also
study various cohomology theories of generalized flag manifolds with
an emphasis on the multiplication of Schubert classes. In particular,
he will attempt to understand the quantum cohomology of isotropic
Grassmannians (with A. Kresch and H. Tamvakis). He also hopes to
determine if the Gromov-Witten invariants on Grassmannians and other
homogeneous spaces are determined by positivity properties. As a
separate goal in his research, the investigator will develop computer
programs for computing the studied formulas and invariants.

Much development in algebraic geometry has been motivated by
enumerative geometric problems, that is, problems that ask for the
number of geometric objects of a specified type that satisfy certain
conditions. For example, quantum cohomology is a theory for counting
the number of curves of given degree in a variety that meet a number
of fixed subvarieties. The invention of quantum cohomology was
motivated by physics, where the ability to count curves has
applications to mirror symmetry. In general, enumerative problems can
be attacked by constructing a moduli space that has one point for each
geometric object that could be counted, such that the conditions on
the objects correspond to subvarieties of the moduli space. This
reduces an enumerative problem to understanding the intersection of
subvarieties of a larger space. The relevant subvarieties can often
be constructed as special cases of quiver varieties, so this type of
varieties provide a powerful tool in enumerative geometry. In
addition, the study of quiver varieties has given rise to many new
relations between algebraic geometry and combinatorics, as well as
powerful methods and constructions in both fields.